Molecular Beam Studies of Collisions and Reactions at the Gas-Liquid Interface

In this project in the Physical Chemistry program of the Chemistry Division, Prof. Gilbert Nathanson of the Chemistry Department of the University of Wisconsin in Madison will continue his researches on the interactions between gases and liquids, these ranging from repulsive collisions to trapping and solvation. Three sets of experiments will be conducted: 1. paraffin, olefin, and aromatic liquids will be bombarded by hydrocarbon gases in order to learn how changes in the structure and bonding of liquid phase molecules govern surface corrugation and gas-liquid energy transfer; 2. inert gas atoms will bombard the surfaces of liquid metals indium and gallium and the In/Ga eutectic alloy to examine the roles played by surface and sub-surface atoms in absorbing the impact energy; 3. gaseous water, ammonia, short chain alcohols, and hydrogen chloride will bombard a sulfuric acid surface to map out the scattering from, and solvation in, sulfuric acid as function of impact angle and collision energy. Mass spectroscopy and time-of-flight velocity analysis will be used to monitor the identity, translational energy, and direction of scattered products. There is little experimental work being done probing the liquid interfaces at the molecular length scales. This research has a high probability of exposing new phenomena and discovering new aspects of gas-surface interaction mechanisms. The techniques employed in this research were developed by the principal investigator. The results of this research will have bearing on other areas of physical chemistry such as nucleation, vaporization, chemical reactions at surfaces, polymer physics, and atmospheric chemistry involving aerosol particles.